Nonlinear Dynamics and Self-Organization in Geological Systems

The principal investigator and others will hold a workshop on "Nonlinear Dynamics and self-Organization in Geological Systems." This grant will support the attendance of graduate students at the workshop.